Cosmic Ray Anisotropies and Density Gradients in Interplanetary Space at High Rigidities

This proposed research will be a continuation of a study of the long term properties of cosmic ray anisotropies in interplanetary space surrounding the earth, with emphasis on the information that can be extracted from these data regarding the properties and long term variations of cosmic ray density gradients in the inner heliosphere. This work is expected to yield important information on the three-dimensional magnetic and cosmic ray profile near the earth, and on the way in which it changes when the sun's polar magnetic field gradually changes, and then reverses every eleven years. With the data obtained during the study, together with data accumulated since 1965, it will be possible to examine data for a 30-year period, including nearly three solar activity cycles. This will allow us to study the continuing evolution of the heliospheric magnetic field and its influence on high rigidity galactic cosmic radiation in the inner heliosphere.